CAREER: Promoting Equitable and Inclusive STEM Contexts in High School

This project focuses on fostering equitable and inclusive STEM contexts with attention to documenting and reducing adolescents’ experiences of harassment, bias, prejudice and stereotyping. An important barrier to persistence in STEM fields for marginalized groups, including women and ethnic minorities, relates to a culture in many STEM organizations, such as academic institutions, that fosters discrimination, harassment and prejudicial treatment of those from underrepresented groups. This research will contribute to understanding of the current STEM educational climates in high schools and will help to identify factors that promote resilience in the STEM contexts, documenting how K-12 educators can structure their classrooms and schools to foster success of all students in STEM classes. Further, this work will explore how to create schools where students stand-up for each other and support each other so that any student who is interested will feel welcome in STEM classes and programs.

This research aims to examine cultures of discrimination and harassment in STEM contexts with attention to: 1) assessing STEM climates in high schools in order to identify the character of discrimination and harassment, 2) understanding how youth think about these instances of bias and discrimination; 3) identifying pathways to resilience for underrepresented youth pursuing STEM interests, and 4) testing an intervention to promote bystander intervention from those who witness discrimination and harassment in STEM contexts. This research will take an intersectional approach recognizing that those who are marginalized by multiple dimensions of their identity may experience STEM contexts differently than those who are marginalized by one dimension of their identity. Because adolescence is a critical developmental period during which youth are forming their attitudes, orientations and lifelong behaviors, this research will attend to issues of bias and discrimination well before individuals enter college STEM classrooms or the STEM workforce: namely, during high school. Further, this work will examine the creation of equitable STEM climates in both college-preparation classes as well as workforce development STEM programs offered though or in partnership with high schools. This research will provide clear evidence to document the current culture of STEM contexts in high schools, using mixed methods, including surveys, qualitative interviews and longitudinal measurement. Further, the project will involve development and implementation of an intervention, which will provide the first test of whether bystander intervention can be fostered in STEM students and will involve training STEM students in key 21st century skills, such as social-cognitive capacities and interpersonal skills, enabling them to speak up and support peers from marginalized backgrounds when they observe discrimination and harassment.

The CAREER program is a National Science Foundation (NSF)-wide activity that offers awards in support of junior faculty who exemplify the role of teacher-scholars through outstanding research, excellent education, and the integration of education and research within the context of the mission of their organizations. This project is supported by NSF's Discovery Research PreK-12 (DRK-12) program. DRK-12 seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.